ITR: E-business and Business Telecommunications Center

EIA-0082001
Shim, Jung
Mississippi State University

ITR: E-business and Business Telecommunications Center

This proposed research is for planning the development and expansion of
research, training, and education in electronic business (e-business) and
telecommunications of an information systems program. Collaborative
research, enhanced course offerings, equipment, and industry partnerships
would result in new methods for educating citizens in information
technology (IT), expand the supply of entrants into IT professional jobs,
and increase the breadth and depth of existing computer science,
information systems, and marketing programs. Research in
telecommunications would be expanded to involve experimentation with remote
teleconferencing systems to conduct IT work. Other foci include anywhere,
anytime training over the Internet and experimentation with the
effectiveness of video distance training methodologies. The overall goal
would be to expand education and training efforts to form a regional center
for the production of bachelor degree students with concentrations in
e-commerce and telecommunications along with technical Internet-oriented
coursework. In addition, faculty and graduate students would have
opportunities to extend their training through telecommunications and
e-business oriented training workshops.